Mathematical Sciences: Matrix Differential Equations and Their Applications

This research is concerned with the dynamics of matrix differential equations and their applications. These matrix differential equations are cast in fairly general frameworks of which special cases have been found to be closely related to important numerical algorithms. In particular, the dynamics of each matrix differential equation will be explored using computer experiments, high resolution graphics and symbolic manipulation, in conjunction with analysis. This study is expected to find important applications ranging from new developments of numerical algorithms to theoretic solutions of open problems.